Damage Control in Grinding of Ceramics

9500223 Zhang Ceramics are hard, wear resistant, high strength materials, and they can maintain these properties at elevated temperatures. This makes them desirable for high performance applications, but ceramics are also brittle, and lose their theoretical load carrying capacity with the presence of cracks. The same properties that make ceramics desirable for high performance applications, also make them very difficult to process, and low productivity ductile regime grinding is the current method used to achieve precision geometry and surfaces. This project will investigate damage control grinding of ceramics, an approach that uses less costly machine tools, can be done at higher material removal rates, with only a small penalty in functional performance of the ceramics. The project goals are: (1) predicting critical grinding depth, crack size and morphology, (2) verification of these predictions by both single grit and grinding experiments, and (3) characterization of the damage control ground surfaces. These results will lead to higher productivity in processing ceramic parts by grinding. As a result, there will be wider use of ceramic components in applications where precision, wear resistance, and high temperature performance are important.